NSF Young Investigator

Funded under the new National Science Foundation Young Investigator Award program (NYI), research will be supported for a combined experimental and numerical simulation approach to hydrodynamic problems related to river mechanics. Two main topics are the initial focus of this research: experimental studies of turbulent flow over rough surfaces and turbulence - sediment interaction, and a numerical simulation of river channel instabilities beyond the linear perturbation regime. The study will provide insight into the mechanics of river meandering and bank erosion, of great importance to various environmental issues.